Studies Related to Theory of Fluids

Professor Jerome Percus is supported by a grant from the Theoretical and Computational Chemistry Program to perform theoretical studies in five specific areas including: 1) equilibrium theory of classical continuum fluids, simple and complex; 2) the corresponding theory of lattice gasses on networks of varying complexity; 3) electron fluids, atomic and molecular, principally at zero temperature; 4) the nonequilibrium theory of random sequential adsorption; and 5) stationary clock-regulated queuing networks. A common thread starting to appear in these diverse fields of research is that of hierarchical structure, calling for a multi-level description and strongly influencing the framework in which more empirical studies will be made. %%% Complex systems consisting of strongly interacting molecules in condensed phases are still not well understood from a theoretical point of view. Much of the current line of research consists of theories based on simplified models which capture the salient features of the more complex systems they represent. Percus' research on such models will help to elucidate the important physical characteristics of such complex systems.